California Minority Graduate Forum

The overall objective of the proposed California Minority Graduate Forum is to increase the number of minority students from Southern California who eventually enroll in graduate school. The Forum is being held for approximately 500 juniors, seniors and master's minority students throughout Southern California who have indicated an interest in attending graduate schools. We have a commitment and from the participating colleges and universities that half of these students will be from disciplines which the National Science Foundation traditionally supports. Students interested in going to professional school such as law or medicine will not be allowed to participate. Representatives from 100 graduate schools throughout the United States will participate and the students will be able to discuss opportunities for graduate study with these individuals. Several workshops will be given on topics ranging from financial aid to taking the GRE examination. Details on how to prepare for the exam as well as specific test-taking strategies will be discussed in the workshops. There will also be some motivational speeches by minority faculty role models and minority students who are currently in doctoral programs. Representatives from NSF will also be invited to speak or participate in the forum panels and workshop.